Dialect Loss and Innovation: Documentaries and Outreach Program

North Carolina State University proposes to produce two one-hour documentaries on language diversity in the southeastern United States, one on a receding traditional variety of English on the Outer Banks of North Carolina tentatively titled Vanishing Voices of the Outer Banks, and one on the emergence of Spanish and Hispanic English in the Mid-Atlantic South tentatively titled The Spanish Voice in the New American South. The project is related to NSF research grant BCS-0542139, Old and New Ethnic Dialect Configuration in the American South," but it also connects with the PI's extensive, ongoing public outreach activities related to linguistic diversity. The project contributes to the public understanding of language diversity in American society and the social role of language in community life.